Cascade Topology Seminar

9727583 Bleiler This award will provide partial support for speakers and others at semiannual conferences in the series known as the ``Cascade Topology Seminar,'' over a three-year period beginning in 1998. These conferences will be held at various universities in the northwestern United States and southwestern Canada. Among institutions currently active are the University of British Columbia, University of California-Berkeley, University of Nevada-Reno, University of Oregon, University of Puget Sound, University of Washington, Boise State University, Oregon State University, and Portland State University. Typically there will be half a dozen principal speakers on topics ranging widely over geometry and topology, both algebraic and geometric, the majority from outside these institutions, and more than fifty participants altogether, roughly half of them faculty and half of them graduate students, as well as an occasional undergraduate student. Participation by younger mathematicians, by women, and by underrepresented minorities is encouraged, the first two with notable success. Other sources of financial support include the host institutions in each case and, in the case of the conferences held in Canada, Canadian sources, which entirely supplant the National Science Foundation. ***